Minority Research Initiation: Development and Evaluation of A Computer Animation Research Testbed for Construction Site Operations

The purpose of this continued research effort is to develop a animation (simulation) technique for construction site layout and operations optimization. A experimental 3-D graphics tool will be developed for use in assessing the value of computer animation in construction site activities; that is, quantitative reporting of user activities and resource utilization. Such reporting capability will make possible the scientific evaluation of computer animation functionality. It would also act as an educational tool that could be used for pedagogical purposes as well as to identify future construction site research problems.